Surfaces in low-dimensional topology

The investigator proposes to study the topology of 3-dimensional manifolds,
using 2-dimensional laminations and foliations as the basic tools. The main
goal is to show how these objects can be used to attack several long-standing
conjectures in low-dimensional topology. In particular, he proposes to use
constructions of essential laminations, due to the investigator and others,
to classify the exceptional Dehn surgeries on alternating knots. He
plans to use laminations to show that some large classes of 3-manifolds
satisfy the Virtual Haken Conjecture. He will also continue work aimed at
providing a better understanding of the structure of sutured manifold
decompositions, a fundamental technique in building and using taut foliations,
by developing examples of hyperbolic knots with large depth.

We live in and move through a 3-dimensional universe, which we perceive
as extending infinitely in all directions. But recent observations hint at the
possibility that space may instead wrap around itself, so that we live in a finite
universe. It is this very idea of a space wrapping around itself that lies at the
heart of geometric topology, whose goal is to understand the global structure
of objects which locally look like ordinary Euclidean space. The investigator
plans to study several questions aimed at uncovering patterns in the global
structure of 3-dimensional spaces, by using 2-dimensional surfaces to study
the spaces in which they can be found. The main idea is to use surfaces as a
way of cutting the space into pieces; by studying the resulting pieces, we
can gain insight into the large-scale structure of the 3-dimensional space.